Mathematical Sciences: Analysis of Solitary Waves and Multi-Solitons

This project will involve the analysis of solitary waves, multi- solitons, and related phenomena in the theory of nonlinear dispersive systems without dissipation. Several questions in the analysis of solitary waves will be examined, including their existence, uniqueness, and stability. Numerical investigations will supplement theoretical analysis. In addition, the validity of various approximate equations and certain rigorous properties of nonlinear dispersive systems of partial differential or integro-differential equations will be considered. The tools of nonlinear analysis will be supplemented by some numerical simulation and the special methods of inverse scattering theory. Solitary waves are localized, nonlinear, progressing waves that subsist on a balance struck between nonlinear and dispersive effects. They arise in many physical settings. Rigorous analysis is often quite difficult since the problem is nonlinear from the outset. Nonlinear model equations have been developed that predict the presence of solitary waves and capture their qualitative features. The systems to be studied arise in many areas of nonlinear science including fluid mechanics, nonlinear optics, solid state physics, oceanography, and meteorology.